Delaware's Innovative Science/Mathematics Collaborative for Undergraduate Success (DISCUS)

A core group of mathematics and science content and education faculty from the University of Delaware, Delaware State University, and Delaware Technical Community College are collaborating with K- 12 teachers in an initial effort to reform ten existing courses that make up parts of the pre-service teacher preparation programs at these three institutions. Work is also planned on three new courses for in-service teachers. In this project K-12 teachers will work with higher education faculty, leading to the development of a K-16 community of mathematics and science educators, dedicated to the continual improvement of its pre-service teacher preparation programs. These reform efforts also leverage the considerable momentum towards reform engendered by the Delaware State Systemic Initiative project.